Phase II: Knowledge Modeling and Computational Intelligence

This Small Business Innovation Research Phase II project proposes to design, implement and flight test an adaptive critic based flight control system using both the nonlinear and linear quadratic adaptive critic algorithms developed in Phase I; implement a hardware-in-loop test system for the adaptive critic flight control system; and flight test the adaptive critic flight conotrol system in Accurate Automation's LoFLYTE neurocontrol testbed aircraft.